Formation of Silicon Nitride

This collaborative award is made in the Special Projects Office of the Chemistry Division and the Chemical and Thermal Systems Division under the Materials Synthesis and Processing Initiative. The research will be directed towards developing a CVD silicon nitride film process which will proceed at temperatures as low as 450 C, i.e temperatures where aluminum connections are not adversely affected. Kinetics of the elementary reactions, e.g. silylene intermediates with ammonia, leading to gas phase Si-N bond formation under CVD conditions will be studied. The catalytic effect of free radical precursors on the formation of silicon nitride films from diethylsilane and ammonia will also be explored. %%% The development of a low temperature process for depositing clean silicon nitride films will permit the capping of microelectronic devices using aluminum interconnects. Currently used low temperature plasma enhanced CVD processes produce poor quality films.